Noise Management for Systems-on-a-Chip

This project is on the development of modeling, simulation, and design
approaches for reducing device noise, substrate noise coupling, and supply
noise coupling in integrated digital/analog/RF ICs. Noise in analog/
digital/RF chips is being explored by understanding the contributions of
these three noise sources initially within the context of voltage
controlled oscillators (VCOs) and then in phase locked loops (PLLs). The
VCO is a good platform for this study since it presents one of the most
challenging aspects of RF and mixed-signal designs. Low phase noise VCO
designs are being investigated with a focus on (1) detailed parasitic
modeling of the tank circuit elements for RF applications, (2) inclusion of
noise due to the active elements, and (3) coupling noise from the substrate
and power supply. Simulation and design techniques are being developed to
predict and reduce these noise sources. The research in this proposal is
tightly integrated with a significant education component that includes the
development of new courses and dissemination of both the research related
results and the course material through the use of the world wide web.